PIF: Few Electron Logical Qubits and Cross Chip Shuttling of Quantum Information

The research project centers around producing mesoscopic few electron devices in
order to experimentally test coherent control and shuttling of few electron spin qubits.
The spin and position information will be determined using quantum point contact
listening devices situated adjacent to the quantum dots. High frequency pulses will be
used in order to control and transfer electrons among the different locations.
The overall importance of the proposed research project is to extend our understanding
of the limiting factors that determine spin coherence lifetime of stationary and flying few
electron spin qubits. In the solid state, complicated interactions among electrons and
between the electrons and their host material result in decoherence. In GaAs, spin
decoherence is caused by the hyperfine interactions
between the electron and the host nuclei. Here we shall use the higher degree of
symmetry offered by few electron qubits in order to overcome such sources of
decoherence.